Novel Materials From Conjugated Polymers

This award is made by the Divisions of Chemistry, Materials Research and Electrical and Communications Systems under the Materials Synthesis and Processing Initiative. The research will apply ring-opening metathesis polymerization to the synthesis of block copolymers having polyene or other electroactive microdomains. A goal will be the synthesis of quantum dots by morphology control of conjugated co-polymer blends. Stretch-orientation of quantum dots is expected to form quantum lines with useful anisotropic optical properties. These may find application as molecule-based optical gratings. Interfaces between inorganic semiconductors and doped conjugated polymers will also be evaluated as junctions and Schottky barrier devices. %%% Ring opening metathesis routes to conjugated polymers will provide new materials with novel mechanical, physical, optical and electrical properties.